A Mentoring Team Approach to Increasing Minority Participation in Technical Disciplines

This project entails activities aimed at increasing the involvement of minority students of the Des Moines school system in science and technology. The overall strategy is one of developing mentoring teams of private-sector professional scientists and engineers, selected secondary teachers, and Iowa State University faculty. Each team will work with a group of six minority students who have been selected on the basis of Iowa Tests of Basic Skills (ITBS) and classroom teachers' personal evaluation which indicate that they have high ability but are not performing at the level expected. The teams will work within the school system to help students acquire and use basic skills and good study habits, to provide students insights on career possibilities, to promote supportive home environments in collaboration with parents and families, and see them through to matriculation at the college or university level. A core group of five scientists and two educators will coordinate planning and the work of the teams. This group will include an expert on learning strategies and a specialist on the relationship of the family to learning, as well as scientist from the university and the private sector. Program components currently under way in a pilot test include participating as laboratory associates for their own classes, half-day field trips to the ISU campus each month, four (4) all-school assemblies presented by ISU scientist. The mature program will have as many as 30 mentoring teams operating with 150 students at all grade levels.